1989 West Coast Regional Developmental Biology Conference, Standford Alumni Center, Fallen Leaf Lake, California, May 4-7, 1989

Partial support is requested to defray costs for graduate students and some invited speakers attending the West Coast Regional Developmental Biology Conference to be held May 4-7, 1989 at Fallen Leaf Lake, California. The tentative schedule calls for thirty speakers, reflecting as full a mix of gender, race and degree of professional advancement as is compatible with the primary criterion of scientific excellence. Topics to be addressed in the formal sessions include: Evolution and Development, Kinetic Analyses of Development, Early Events in Embryogenesis, Interactions in Development, Morphogenesis, and Cell Biology in Development. In addition, all attendees will be invited to contribute to a formal poster session. %%% These regional meetings have provided important opportunities for developmental biologists at all levels to meet with their colleagues within the region. They serve a valuable educational purpose for the graduate students and post doctoral students.